EAGER: AI-Enabled Digital Twin Framework to Advance Safety of Lithium-Ion Batteries Under Extreme Conditions

Lithium-ion (Li-ion) batteries are essential components of modern energy storage, transportation, and mission-critical systems. However, their performance and safety under extreme conditions—such as high temperatures, fast charging and discharging at very hot or very cold conditions— remain poorly understood. This project aims to enhance the long-term reliability of Li-ion batteries through the development of an AI-enabled digital twin framework. Using an extensive battery aging and cycling dataset collected by the research team, the digital twin will enable the simulation and prediction of battery performance and aging in challenging operating environments. This work is especially significant as data centers powered by artificial intelligence (AI) technologies increasingly rely on high-performance, resilient energy storage. The results of this research will support the design of safer, longer-lasting battery systems and serve as a critical foundation for future work in demanding environments such as eVTOLs, small modular reactors (SMRs), data centers and space applications. This project brings together complementary expertise from the Electrical and Mechanical Engineering disciplines at SMU to address a nationally significant challenge. It advances workforce development in the critical field of battery analytics and leverages SMU’s high-performance computing capabilities to support the development of safe and reliable Li-ion batteries.

The research will be conducted in two phases. In the first year, the team will develop a high-fidelity digital twin using experimental data collected from long-term thermal aging and charge-discharge cycling of various Li-ion battery chemistries. The model will incorporate key electrochemical dynamics operate in real time. In the second year, the model will be validated through laboratory experiments simulating extreme conditions, specifically high-temperature operation and fast charging in very cold environments. By understanding how these stressors influence internal battery mechanisms—such as lithium plating and thermal degradation—the digital twin will enable the development of adaptive battery control strategies that mitigate safety risks and extend battery lifespan. This project also serves as a critical steppingstone for future research on radiation-hardened batteries for nuclear and defense applications, providing a safe and cost-effective method for simulating harsh environments within controlled laboratory settings.